RUI: Role of Peptides in Modulating the Output of a Small Neural System

9310003 Dickinson Most of the movements that animals make can occur under a variety of internal external conditions, thus placing different demands on the animal. Consequently, the central pattern generators that are responsible for producing the motor outputs to drive rhythmic movements are highly flexible. Under the influence of different neuromodulators, these pattern generators can produce a variety of different outputs. In addition, many movements require the coordination of large numbers of muscle groups, including ones that may also be involved in controlling other behaviors. This is particularly clear in the case of functionally related rhythmic patterns, such as those that drive the four parts of the foregut in crustaceans. Recent research on this system has shown that the four pattern generators, which were once thought to be four discrete entities, interact in a variety of ways. The research to be undertaken will examine a number of aspects of the neuromodulation of the rhythmic motor systems in the stomatogastric nervous system, focusing on the interactions of the pattern generators. In addition, this research will address another issue that has arisen recently, namely the effects of modulation on spatially distributed pattern generating networks.***